ITR/IM Kepler - A Communal Digital Library

This project aims to develop a framework and tools for defining, describing and supporting the publication and dissemination requirements of community digital libraries. It also expects to package the tools and software to create a general solution for implementation and deployment of resources for diverse communities. The promise in the approach is that publishing and dissemination will become more sustainable and effective by moving responsibilities to the author. Four test deployments will be done involving the US Geological Survey, the Los Alamos National Laboratory, the Open Language Archives community and selected computer science departments already involved with NCSTRL-OAI. Monitoring usage will be a part of the overall effort.